Teaching Middle School and Junior High School Mathematics Teachers to Use the Personal Computer as a Teaching Tool

This school system/academic/AT&T partnership will establish a year long computer science program for mathematical instruction for 46 teachers from 23 middle/junior high schools in the Ogden, Utah area. The immediate goals are to: o assist experienced teachers develop mastery of BASIC and LOGO for mathematics instruction under the exploration, problem solving and demonstration models; o provide two teachers from each school with a classroom micro computer, modem and printer donated by AT&T; o create a computer educational network between the middle/junior high schools and Weber State College; o establish logistics for participating teachers to become lead teachers of in-service computer workshops for their colleagues. During an academic year and intensive six week summer program, Weber State College in Utah will provide computer labs and teach courses/labs for 23 teams of two teachers (from the same school) located in three school districts. Eight academic credits will be awarded for course work on the use of computers in middle/junior high school mathematics classes, and the development of workshops to be taught by the participating teachers. While taking these courses the participants will use the computers in their classes. There will also be a hot line, computer network and classroom clinics.